Targeted Infusion Grant: Increasing Mathematics Teacher Production through Curriculum Enhancement and Innovation

The project - Targeted Infusion: Increasing Mathematics Teacher Production through Curriculum Enhancement and Innovation - at North Carolina A&T University proposes to enhance the mathematics education program to increase the institutional capability of preparing future minority secondary mathematics teachers. The goal of this project is to increase production and improve high-quality preparation of future mathematics teachers through curriculum enhancement and innovation.
The objectives are: (1) to increase the production of future minority mathematics teachers with adequate credentials in mathematics; (2) to improve retention of mathematics education students; (3) to increase and retain the content knowledge of mathematics; and (4) to expose mathematics education students early on with challenging pedagogical scenarios on planning, implementing and assessing mathematics instruction.
The project seeks to broaden the mathematics education curriculum and education opportunities for undergraduate students at NCA&T, foster and nurture students' interests in mathematics education, and retain them in academic programs and careers in secondary mathematics education. The local school district's lateral entry secondary mathematics teachers will benefit from participating in mathematics content knowledge and pedagogical skill training and development workshops to better prepare them for the licensure examination, hence helping alleviate the shortage of qualified secondary school mathematics teachers in local secondary schools.